New Synthetic Approaches Towards Non-Oxidic Glasses and their Structural Characterization by Modern Solid State Nuclear Magnetic Resonance Techniques

The microstructural chemistry of glass formation for glasses consisting of main group III-V elements will be studied, and solid state nuclear magnetic resonance methodology to investigate the glassy state will be developed.